Proposal to Purchase a SQUID magnetometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Virginia Polytechnic Institute and State University will acquire a Superconducting Quantum Interface Device (SQUID) magnetometer. This equipment will enable researchers to carry out studies on a) synthesis and characterization of molecule-based magnets; b) magnetic targeting of drugs in vivo; c) development of ferromagnetic, ferroelectric and ferroelastic materials; d) properties of alkyl-substituted metallocenes and indacenes; and e) the synthesis of stable and persistent organic radicals that are capable of chelating transition metals.
A SQUID magnetometer is critical for studying the magnetic properties of materials, particularly for weakly magnetic/small moment samples. In a DC magnetization measurement, one measures the magnetic moment as a function of applied DC magnetic field (and/or temperature). Using DC magnetization experiments, one can determine magnetic moments or a hysteresis curve, or identify magnetic phase transitions. In such a fashion, complete magnetic characterization of single crystal samples and films is possible. These types of measurements are essential in order to understand polymers and thin films.